NSF-CGP Science Fellowship Program: A Comparison of U.S. and Japanese Bridge Foundations with Emphasis on Construction Techniques and Seismic Behavior

Yashinsky 9312786 This award will support a cooperative research project between Mr. Yashinsky, Office of Earthquake Engineering, California Department of Transportation (Caltrans) in Sacramento and Dr. Kazuhiko Kawashima, Earthquake Disaster Prevention Department, Public Works Research Institute (PWRI) in Tsukuba, Japan. During a six month visit Mr. Yashinsky will conduct research on a comparison of U.S. and Japanese bridge foundations with emphasis on construction techniques and seismic behavior. He will identify how the geology, soil and bridge characteristics relate to the choice of a foundation. This will be followed by an examination of the construction techniques used for each type of foundation. He will then review how the Japanese model the stiffness of different foundations, how they input the ground motion, techniques they use to determine the seismic demand and capacity of the various foundation types and how they account for incoherence and multiple support excitation. The collaborators will then model the different foundations using current Caltrans computer codes and compare their performance with Caltrans' foundations. The research findings could result in U.S. bridges with a greatly improved response to earthquakes. Also, the many innovative construction techniques used for foundations in Japan could benefit the U.S. construction industry. Mr. Yashinsky's expertise lies in the area of major seismic redesign/rehabilitation programs for bridges. Both Dr. Kawashima and his Institute (PWRI) are world leaders in the area of foundation design of seismically resistant bridges. It is anticipated that this collaboration will benefit both countries and will continue informally after this project is completed. This project is supported by the NSF-CGP (Center for Global Partnership) Science Fellowship Program. ***